Go Power: An Interactive Exhibit on Energy...

The Austin children's Museum will develop a colorful, interactive exhibit on energy entitled GO POWER. Go Power is being created as part of a U.S. Department of Energy exhibition initiative with in-kind support from the Lower Colorado River Authority, a non-profit public power agency, and design and fabrication assistance by the Robot Group, an Austin-based consortium of engineers and artists. The partnership, advised by a panel of science, energy, and education experts, will build a 1,200 square-foot exhibit geared towards young children (pre- school and elementary-age), and their families. An Exhibit Developer with a strong scientific background will be responsible for the design and implementation of exhibit components which will highlight energy-related science and technology as a focus for developing and utilizing skills of scientific inquiry and invention. Through kinetic sculpture, computer games, participatory exhibits, and adjunct programming, visitors will learn about potential and kinetic energy and its forms: mechanical, electrical, chemical, thermal, solar. Following its test edition, designed with input from advisors, front-end evaluations, and prototypes, Go Power will become the sixth exhibit to join the Museum's popular national touring program.